Modeling the Resilience of Forest Insects to Megafire using Artificial Intelligence and Bayesian Computation

Very large and intense fires, known as megafires, are becoming more common in forests. Resilience is the ability to recover from a disturbance such as megafire, however little is known about the resilience of different species to extreme disturbances. This project will investigate how a variety of forest insect species recover after megafires. Insects are critical for ecosystem services such as pollinating plants, decomposing fallen trees and leaves, or controlling pests. The research will look for general rules about resilience to extreme fire events. Biotechnology produced by this project include artificial intelligence (AI) models to identify insect species as well as computational models to predict species’ resilience to fire. This biotechnology can be used to help restore forests and other ecosystems after a megafire. The project will contribute to a globally competitive workforce by training students in AI, computational biology, as well as field and laboratory methods. It will also produce educational materials for use in classrooms nationally. A video and museum exhibit will enhance public scientific understanding and engagement.

The goal of the research is to quantify and understand how insect species respond to megafire. The general hypothesis to be tested is that resilience to megafire depends on the landscape context, relationship to forest edges, heterogeneity in fire severity, and canopy recovery. The researchers will sample insects and quantify change in habitat at a network of monitoring sites in experimental forest fragments recently subject to megafire. Resilience will be quantified using long-term pre-fire data from this site. Beetles are a key focal group, with more than one thousand species found at the site. A custom-built robot will be used together with computer vision and experts to identify and count hundreds of species across thousands of specimens. Habitat change will be measured using field surveys, ground-based sensors, and remotely-sensed imagery from satellites and unmanned aerial vehicles. Computational Bayesian models will be developed to quantify the probability and degree of recovery as a function of landscape context and life history traits of species, including body size, dispersal ability and trophic position. The fundamental processes that determine resilience will be explored, particularly the roles of small population processes, spatial dynamics of forests, and life history traits of species. Specifically examining these fundamental processes will allow the research to be generalized to other systems and animal species.